Using Educational Robotics to Improve Student Retention and Recruitment in STEM Education

Computer Science (31)

The Borough of Manhattan Community College and Lehman College are collaborating on this project which is improving student retention in STEM disciplines by using educational robotics to teach critical thinking, problem solving, algorithm development and scientific reasoning skills.

Intellectual Merit: This project is adopting existing curriculum materials in robotics and adapting them to increase the retention of undergraduate computing and physics students. It is using hands-on, student-centered, and goal-oriented learning to motivate, retain, and attract STEM students.

Broader Impacts: This project is targeting traditionally underrepresented groups in STEM education and establishing articulation paths between local two- and four-year institutions. It is also using faculty workshops to build a community of STEM educators interested in educational robotics.